Gromov-Witten theory

Abstract

Award: DMS-1103368
Principal Investigator: Yongbin Ruan

During the past twenty years, there has been a great deal of
interaction between mathematic and physics. Various
correspondences or dualities arising from physics have had a
great impact on mathematics. One of these correspondences is the
Landau-Ginzburg/Calabi-Yau correspondence. This proposal offers a
comprehensive program to establish this correspondence in
mathematics with mathematical rigor. There is a wide range of
applications such as global mirror symmetry, the computation of
Gromov-Witten invariants of compact Calabi-Yau manifolds, and to
modular forms.

Since the era of Newton, mathematics has been a key tool in
helping us to comprehend the universe. An example is
differential geometry via Einstein's theory of general
relativity. During the last twenty years there has been a great
deal of activity in building so-called string-theoretic models of
the universe. The string-theoretic model of the universe is
ten-dimensional, our usual 4-dimensional space-time togeher with
a very small 6-dimensional space called a Calabi-Yau manifold.
Such a small internal space will affect our space-time through
certain mathematical quantities such as Gromov-Witten
invariants. The computation of these invariants has been a
central problem in geometry and physics. This is the area in
which mathematical tools can be very useful. The current
proposal envisages a theoretical framework as well as developing
technical tools to compute Gromov-Witten invariants